REU: Taxonomy and Biology of Marine Fungi

Increased research on marine fungi has shown that this group is widespread and ecologically important. Apparently, marine fungi have evolved along parallel lines from a diversity of ancestors, but their origins are unclear. The recent discovery of Koralionastetaceae, a fungal family associated with corals and sponges, may contribute to our understanding of the origin of marine fungi. The most intriguing aspect is that the genus occurs not only in Caribbean but also in Australian coral reefs. Because of the peculiarity of the habitat and the geographic barriers, no genetic exchange between these populations could have been possible in recent times. It is, therefore, hypothesized that they have developed before the close of the Isthmus of Panama in the Pliocene, but most likely earlier. The primary objective of the proposed research is to clarify the life histories of described and new members of Koralionastes and to prepare detailed descriptions and illustrations. Examinations will include morphological studies and experiments with live material. A second major objective is the preparation of a revised, illustrated and annotated key to the filamentous higher marine fungi, to be used by taxonomists and non-taxonomists in the course of their work or in the classroom. The last comprehensive key, published in 1979, is in urgent need of a revision because the number of described species has increased by 36% and many name changes have been made.